EI: A Concentration Track in Embedded Systems

EIA- 0122600
Panchanathan, Sethuraman
Arizona State University

Educational Innovation: A Concentration Track in Embedded Systems

This project presents a novel structure for a concentration track in embedded systems. The new curriculum combines important aspects of content, synthesized from the latest research in academia, with industry research aspects channeled through a capstone project (implemented as internships in industry). The curriculum spans a spectrum of activities related to the design and delivery of educational and research efforts and is characterized by three main innovative components namely; a new industry-university collaborative model for integrating basic and applied research, creation and delivery of state-of-the-art course content and appropriate laboratories, delivery of a capstone project through internships. The embedded systems curriculum emphasizes fundamental issues such as the balance between hardware and software and the respective trade-offs in building embedded systems. Practical design experience is fostered through the courses, laboratory experiments, and capstone projects that expose the students to the state-of-the-art design methodologies. In addition, internships, funded by industry, expose the students to work on applied projects mentored by the industrial supervisors and faculty fellows.